Effects of Anisotropy Observed from Surface Waves

The objective of this research is to separate the effects on seismic surface wave polarizations of lateral heterogeneity and azimuthal anisotropy in the Pacific Ocean. Polarization anomalies are a good tool for detecting anisotropy. The results will be mapped to see if anisotropy effects correlate to ocean floor age. The successful development of this technique would be a real contribution to our knowledge of anisotropy in the oceanic crust which is an important, but neglected, effect on surface wave propagation.